Restructuring the Junior Year Mechanical Engineering Laboratory Curriculum to Fully Integrate Modern Instrumentation

The junior year mechanical engineering curriculum is being revised to develop a planned progression from the basics of modern instrumentation to sophisticated use of the latest data acquisition and control equipment. This project is expanding the electrical instrumentation course and integrating it with the first-term mechanical engineering laboratory, fully instrumenting two major pieces of equipment with modern instrumentation in the second-term mechanical engineering laboratory, and implementing one equipment setup with microprocessor-based control and data gathering for use in a culminating experiment. This project is being matched by an amount equal to the award.